SBP: The Roots of Female Underrepresentation in STEM and Beyond: Exploring the Development of Gender Stereotypes about Intelligence

This project examines the development of a key factor leading to women's underrepresentation in science and technology. Specifically, it examines the development of the cultural stereotype that links males but not females with intellectual brilliance and genius. Previous research has found that academic disciplines that are believed to require a "spark of genius" tend to have the largest gender gaps. Because many science fields are portrayed in such terms, the "brilliance = males" stereotype may be an important factor in explaining the persistent gender gap in these disciplines. The primary goal of this research is understanding how this stereotype is acquired over the course of development. Investigating the development of this stereotype will inform how the stereotype might steer capable young women away from pursuing careers in science and technology and may also inform the optimal timing of potential interventions to block its adverse effects.

This project consists of three studies to examine three crucial developmental issues. First, it investigates the development of children's knowledge of the cultural stereotype that males are more likely to be brilliant than females. Second, it investigates the development of gender differences in children's motivation to engage in activities portrayed as requiring high levels of intellectual aptitude. Finally, it investigates longitudinally whether internalizing the stereotype against females' intellectual abilities undermines young girls' subsequent motivation to engage in activities that are said to require brilliance and giftedness. This research explores the development of a set of processes that ultimately limit opportunities for women. As such, these studies will improve parents', educators', and policy-makers' ability to intervene at the root of the problem to promote greater gender equity in those domains of academia and industry in which women have traditionally been underrepresented.

This proposal is being co-funded by Developmental and Learning Sciences, Social Psychology, and Science of Broadening Participation within the Social, Behavioral, and Economic Sciences Directorate and by the Education and Human Resources Directorate's Core Research program and the Research on Gender in Science and Engineering program.